Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of computational neuroscience and is entitled "Developing hybrids of real-time computer neural models and in vivo cells to explore activity dependent plasticity of cortical visual receptive fields." Experience dependent learning in local cortical circuits of the primary visual cortex are being studied in vivo. A new computer-based technique called in vivo dynamic clamp is being used to construct hybrid networks, where a cortical neuron is reciprocally interconnected with real time computer simulated neural models through a whole-cell clamp intracellular electrode. Novel real time data analysis methods, such as real time reverse correlation analysis, are being developed. Using these techniques, changes will be induced in the classical receptive fields by supervised Hebbian learning, with the computer-generated model neuron acting as the teacher. The use of the hybrid networks will permit the clear demonstration that activity dependent learning does take place in the visual cortex at the level of a single cell.